CAREER:Advances in Universal Data Compression with Applications to Joint Source and Channel Coding

The purpose of this research is to develop several unexplored areas in
data compression, as well as to utilize universal data compression
techniques in other applications including biological modelling and a
novel direction of joint source-channel coding. The research focuses on
four topics: (a) design of joint source-channel universal source code
based codes, (b) study of universal compression for large and unknown
source alphabets, (c) design of advanced universal coding techniques for
non-traditional, yet more realistic, data models with practical
implementations, and (d) the study of random access lossless compression.

Common techniques in joint source-channel coding suffer from
severe synchronization problems in bad channel conditions and do
not address universality issues when the source statistics are
unknown. This research develops techniques to combat these
problems, and even attain "free" gain in channel decoding
performance for redundant channel information streams. Common
compression schemes assume that the data is from a known alphabet,
it has a "standard" stationary or constantly changing
statistical model, and it consists of a long sequence. However,
(a) there exist compression applications with large unknown
alphabets, such as text compression where the words constitute the
alphabet, (b) most real data sequences are usually neither stationary
nor of constantly varying statistics, and (c) random access is
necessary in large compressed data bases. The investigator studies
these three non-traditional problems. The research work combines
the development of rigorous theoretical results including
redundancy and description length bounds, with empirical testing,
algorithm design with focus on practical low-complexity
techniques, and implementation of proposed techniques. Finally,
the research also investigates the use of universal compression
techniques to segmentation and modelling of biological sequences.